Collaborative Research: Elucidating the Mechanisms of Coexistance in Communities of Ant-plant Mutualists

A major goal of ecology is to understand the factors promoting coexistence among
competing species. Chief among the hypothesized mechanisms is habitat
heterogeneity, but alternatives include temporal fluctuations in resource availability,
spatially restricted dispersal, and tradeoffs among fecundity, dispersal, and competitive
ability. Only a handful of these mechanisms have ever been shown to operate in the
field, and experimental tests simultaneously evaluating multiple mechanisms are rare.
The proposed study will evaluate alternative coexistence mechanisms in an emerging
model system in community ecology - ants that compete to establish colonies in
specialized plant structures known as domatia. Three species of ants colonize the
domatia of the Amazonian trees Tococa bullifera and Maieta guianensis. Using this
system, non-mutually exclusive mechanisms that may promote ant coexistance will be
tested with a combination of field observations, manipulative experiments, and
mathematical models. Because this system is composed of two specialists that coexist
with a generalist on two resources, our results could provide unique insights into the
evolution of specialization in ecological communities. The project will provide ample
opportunities for students at multiple stages of their academic careers to develop
research, modeling, and mentorship skills. Furthermore, the collaborating PI's are at
institutions with large minority enrollments, which will allow them to continue mentoring
students from underrepresented groups. Finally, this project will strengthen a dynamic
and productive international collaboration, and allow US students to gain their first
experience working in Amazonian ecosystems.